Moving Mountains: An education-outreach video for the Geosciences

This Communicating Research to Public Audiences (NSF 03-509) project in partnership with the American Museum of Natural History will produce a 7-minute High Definition video documentary feature story, Moving Mountains, that follows researchers in the field during the third season of the five year St. Elias Erosion/Tectonics Project (STEEP). STEEP (NSF award #0409009/0735402) is a multidisciplinary, multi-institutional study using geophysical, geological, and climatological methods to investigate a fundamental Earth science research issue. This project affords a unique opportunity to illustrate the diversity of techniques that are brought to bear in modern research efforts in the Earth sciences. The video will be projected on a 12-foot screen in the American Museum of Natural History's Hall of Planet Earth and displayed in adjacent kiosks. It will also be distributed as HD Mpeg2 files to a network of 21 informal science institutions reaching a potential viewer ship of over 7 million people. Two master versions of the video will be produced: one with English language captions and one with Spanish language captions.